Research on Related Topics in Financial Economics

Portfolio models and models of capital market equilibrium play an important role in financial economics. Past work by the investigator developed and tested these models and extended the reasoning of financial economics to issues in macroeconomics. The project continues this line of research by studying systematically the variables that explain the cross-section of expected stock returns. The existing literature identifies many variables (firm size, leverage, market to book value of equity, earnings-to-price ratios, measures of risk) that are related to the cross-section of expected returns. Preliminary suggest that the cross-section variation in expected returns can be explained by just two factors, the size of the firm and the market to book equity value. The robustness of this empirical finding will be checked. The ultimate goal is a comprehensive empirical description and an explanation of the interaction between business conditions, the cross-section of expected returns, and the variation through time in expected returns. The project also continues a study of the permanent and temporary variation in output and its components, especially investment. This work is important in its own right and it will eventually lead to a more detailed explanation of the links between expected returns the real activity. The detailed study by this project of the relations between the variation of expected returns through time and the structure of expected returns across financial markets contributes to our understanding of the efficiency of capital markets, i.e., the general notion that in pricing securities the market correctly uses all relevant available information. Recent work has shown there is much variation in the expected returns on common stocks, Government bonds, and corporate bonds. Some scholars claim that "excessive" variation in the capital markets is evidence of irrational fads. This project demonstrates that there are stable empirical relationships between the variation and dividend yields and term-structure variables that are common to a wide range of securities and related to business conditions.